Career: Integrated Computational MEMS (IC MEMS)

This research focuses on (1) the development of efficient and radically
simpler-to-use device CAD for MEMS by employing meshless finite cloud
methods (2) the development of mixed continuum (based on meshless
computational methods) and atomic scale approaches for accurate analysis of
mixed-technology MEMS and (3) the development of efficient parallel
algorithms for implementation of the device modeling tools on distributed
memory parallel computers.